RIMI: Thermochromism in Transition Metal Complexes

It is proposed to synthesize a series of transition metal complexes that exhibit thermochromic behavior. The types of complexes to be synthesized will include those of the tetrcimetaillate salts, Schiff-base type ligands as well as neutral amine ligands. In all instances, the conditions will be varied to achieve optimum thermochromic behavior. The metals used in the study will include first row transition metals as well as members of the third and fourth transition series. UV-Vis and infrared spectroscopic measurements will be studied at varied temperatures and pressures. X-ray crystallography (with variable temperature capabilities) will be used to determine molecular structures and therefore any structural changes that result from thermochromic processes. Variable temperature NMR will provide a method to monitor structural as well as magnetic changes of thermochromic solutions. The effect of "environmental" conditions (temperature,moisture,natural acids, and UV light) on both free and encapsulated thermochromic compounds will be examined.